RIA: VLSI Algorithms and Architectures for Image Processing

The performance of sequential computers in its rapidly expanding fields of image processing and vision has been found to be inadequate since most applications require processing of the image frames in real time. With the rapid growth in VLSI technology and advances made in parallel processing, the obvious solution is to design parallel algorithms and architectures that can be implemented using VLSI and WSI technology. The focus of this research is on the design and testing of VLSI architectures and chips for a set of very important image processing and vision problems. The problems being investigated are: 1) scale space computation; 2) edge and corner detection; 3) connected component labeling; 4) dynamic scene analysis and 5) image compression.